1997 Gordon Research Conference on Atmospheric Chemistry; Newport, Rhode Island; June 15-19, 1997

9711267 Carlyle The PI is organizing a Gordon Research Conference on Atmospheric Chemistry in Newport, RI on June 15-19, 1997. This Gordon Research Conference is one of the major meetings in this field. This year, the conference will cover a broad range of areas in atmospheric chemistry, including chemistry and climate, stratospheric chemistry, global tropospheric chemistry, biosphere-atmosphere exchange, marine air chemistry, regional air quality, and new frontiers in atmospheric measurements. The meeting will be attended by both established researchers and young scientists, among them the participants of the preceding Atmospheric Chemistry Colloquium for Emerging Senior Scientists (ACCESS).